CAREER: Ultrahigh-Resolution Magnetic Resonance Spectroscopic Imaging for Label-Free Molecular Imaging of the Brain

Understanding how the brain works, including how to effectively treat brain disorders, is one of the most exciting scientific frontiers. Neuroimaging has significantly advanced this frontier by allowing noninvasive mapping of the brain’s anatomy and activity in unprecedented detail. However, new tools are needed to visualize molecular-level information in a living brain. Current methods are limited by several fundamental challenges, including the need of radioactive tracers or contrast agents, limited molecule recognition, noisy signals, long imaging time, and poor spatial resolution. The overall goal of this CAREER project is to develop a new generation of imaging technologies to address these challenges and enable label-free molecular imaging of the brain at unprecedented resolutions in space and time using magnetic resonance spectroscopic imaging (MRSI). Success of the research planned will significantly advance the field of molecular neuroimaging and enable new capabilities by simultaneously mapping many physiologically important molecules in the brain. These capabilities could revolutionize diagnosis and management of neurological diseases and mental disorders. The educational activities will integrate the research with curriculum innovation at the intersections of imaging science, machine learning and computational science and engineering. Activities include development of a Research Experiences for Undergraduates (REU) program to create unique training and professional development opportunities in biomedical imaging for underrepresented minorities in engineering and a new high-school student research internship program centered on neuroimaging.

The investigator’s long-term research career goal is to develop a new generation of imaging technologies to enable label-free mapping of molecular profiles in the brain at unprecedented spatiotemporal resolutions and explore the potential of these technologies for studying brain functions and diseases at the molecular level. Towards this goal, building on the investigator’s expertise and previous contributions on fast MRI and MRSI, the goal of this CAREER project is to develop an innovative imaging framework to model, acquire and process MRSI data and enable new MRSI based molecular imaging capabilities. MRSI is a potentially powerful imaging modality that allows for simultaneous mapping of many physiologically important molecules in the human body without the need of radioactive tracers and contrast agents. However, to date, the development of MRSI still remains at its infancy because of its low signal-to-noise ratio (SNR), slow speed, poor spatial resolution, and susceptibility to system imperfection. The Research Plan is organized under five objectives: (1) Discovery of accurate and efficient low-dimensional models for high-dimensional MRSI signals by integrating biological priors, physics-based modeling and machine learning, to reduce the dimensionality of the imaging problem and enable better tradeoffs in speed, resolution and SNR; (2) Development of unconventional ultrafast data acquisition and data processing strategies that exploit the reduced dimensionality to achieve fast MRSI of the whole brain at the resolution level of functional MRI; (3) Development of novel mathematical formulations and efficient algorithms that work synergistically with the new models and acquisitions for optimal spatiospectral processing; (4) Integration of the new modeling, acquisition and processing methods to enable whole-brain mapping of metabolites and neurotransmitters and their biophysical properties, such as relaxation and diffusion parameters, for molecule-specific microstructural imaging of the brain and (5) Introduction of new dimensions into the proposed MRSI framework to map molecule dependent biophysical properties in 3D. These synergistic developments will transform MRSI from a slow, low-resolution modality to a powerful, high-resolution in vivo molecular neuroimaging tool and open up tremendous opportunities in studying brain biochemistry, microstructure and their connections to functions and disease processes.